Collaborative Research: CIRTL INCLUDES - Toward an Alliance to Prepare a National Faculty for Broadening Success of Underrepresented 2-Year and 4-Year STEM Students

The University of Wisconsin-Madison, Iowa State University, University of Pittsburgh, University of Texas at El Paso, Michigan State University, University of Georgia and University of California, Los Angeles will lead this Design and Development Launch Pilot to build the foundation for a national alliance that will prepare a new national STEM faculty, spanning all of post-secondary education, able to use evidence-based teaching, mentoring and advising practices that yield greater learning, persistence and completion of women and historically underrepresented minorities (URM) undergraduates in STEM. This project was created by this group of institutions, who are members of the Center for the Integration of Research, Teaching and Learning (CIRTL), in response to the Inclusion across the Nation of Communities of Learners of Underrepresented Discoverers in Engineering and Science (NSF INCLUDES) program solicitation (NSF 16-544). The INCLUDES program is a comprehensive national initiative designed to enhance U.S. leadership in science, technology, engineering and mathematics (STEM) discoveries and innovations focused on NSF's commitment to diversity, inclusion, and broadening participation in these fields. The INCLUDES Design and Development Launch Pilots represent bold, innovative ways for solving a broadening participation challenge in STEM.

The full participation of all of America's STEM talent is critical to the advancement of science and engineering for national security, health and prosperity. Our nation is advancing knowledge and practices to address a STEM achievement and the graduation gap between undergraduate STEM students who are women and men, and between those who are URMs and non-URMs. At the same time U.S. universities and colleges struggle to recruit, retain and promote a diverse STEM graduate student body, and a diverse STEM faculty, who serve as role models and academic leaders for URM and female students to learn from, to work with and to emulate. This project, the CIRTL INCLUDES - Toward an Alliance to Prepare a National Faculty for Broadening Success of Underrepresented 2-Year and 4-Year STEM Students, has the potential to advance a national network of organizations to improve the success of future STEM faculty who will educate a diverse undergraduate body and contribute to the learning, retention and graduation of women and URMs in STEM fields.

The collaborating CIRTL universities will work closely with multiple organizations to address key goals, including Achieving the Dream, Advanced Technological Education Central, the American Association for the Advancement of Science, the American Mathematical Society of Two-Year Colleges, the American Physical Society, the American Society for Engineering Education, the Association of American Universities, the Association of Public and Land-Grant Universities, the Council of Graduate Schools, the Council for the Study of Community Colleges, Excelencia in Education, the Infrastructure for Broadening Participation in STEM, the Louis Stokes Midwest Center for Excellence, the Math Alliance, the National Institute for Staff and Organizational Development, the National Research Mentoring Network, the Partnership for Undergraduate Life Science Education, the Southern Regional Education Board, the Summer Institutes on Scientific Teaching, and the Women in Engineering Programs and Advocates Network. Together, this extensive collaborative network will three goals: (1) To deepen the preparation of future STEM faculty in teaching, mentoring and advising practices that promote the success of undergraduates who are women and URMs; (2) To expand and strengthen faculty preparation specifically for 2-year colleges; and (3) To target the preparation of future STEM faculty who are members of underrepresented groups for effective teaching and mentoring, contributing to their early-career success. The seven universities who are partnering to lead this project will work to: (1) Form active partnerships and national coalitions for each of the three goals; (2) Employ a collective impact framework for each goal team and the entire alliance, ensuring common agendas, shared metrics, mutually reinforcing activities and an integrated process using data improvement cycles; and (3) Achieve pilot outcomes that position the alliance for future work.